Internship for Research in GaAs Device and Circuit Modeling

9311775 Yuan Theoretical and experimental studies GaAs optoelectronic devices BiCMOS circuits and HBT's will be undertaken. The optoelectronic device research will study GaAs photoconductors and phototransistors, developing large-signal and small-signal heterojunction phototransistor and photodiode models for optelectronic circuit design. MEDICI will be used for obtaining physical insight into photon and electron properties in GaAs materials, and the effect of different light illumination on a number of device parameters will be investigated both experimentally and theoretically. The study of BiCMOS research will focus on effects of radiation and scaling on BiCMOS circuit performance. BiCOMS test circuits will be exposed to gamma and neutron radiation and post-irradiation performance will be characterized. A model to predict the onset of the 'failure mode' of a BiCMOS inverter circuit will be developed. In the heterojunction bipolar transistor research the theory of intermodulation based on device transconductance. Early voltage heterojunction depletion capacitance, and heterojunction diffusion capacitance will be studied. The phase noise of the HBT oscillator will also be studied. Coupling effects of avalanche breakdown, band discontinuity, negative collector current, and surface recombination on phase noise will be investigated. Furthermore, the impact of supply voltage scaling on the performance of communication circuits like the pager and the transmitter will be examined. ***